Ultrafast Optical Control of Coherent Charge Oscillations in Semiconductors

Support is provided for graduate students and postdoctorals to attend the Telluride Summer Conference on Ultracold Collision Dynamics of Neutral Atoms.